Functions of Acoustic Signal Interactions

In many species of animals, temporal relationships occur between the female-attracting signals of adjacent males if population densities exceed critical levels. When signaling involves the use of sound, these relationships appear as various formats of synchrony and alternation. Dr. Greenfield's research will examine the adaptive functions of signal interactions in several different singing insects that, among them, exhibit a range of synchronous and alternating formats. Observations and experiments will elucidate which of four hypotheses best accounts for the various formats of signal interactions. The hypotheses are that (1) interactions enhance "species recognition"; i.e., neighboring males time their songs so as not to obscure species-specific sounds that females must hear before moving toward any one male; (2) interactions reduce attacks by natural enemies that find their prey by listening to the prey's female-attracting sounds; (3) interactions represent a means by which groups of sexually advertising males compete with one another to attract females to the group's vicinity; (4) interactions represent a by-product of sexual selection, wherein individual males time their sound signals so that they can most strongly attract females and, at the same time, obfuscate the sounds of neighboring males. The results of this research project may reveal subtle aspects of sexual selection that would remain undetected in studies focusing on how females choose among isolated males or in studies that do not measure and control temporal signal interactions. Because some acoustic insects are agricultural pests, information on the roles of signal interactions in female attraction may be pertinent to effective control and monitoring strategies for certain pest species.